CAREER: Data Transmission Techniques: Trellis-Decoding and Beyond

NCR-9501345 Alexander Vardy The first focus of this research is on decoding of trellis codes. The work will attempt to establish new lower bounds on the trellis complexity of linear codes, to investigate the asymptotic trellis complexity of linear codes, to find the optimal sectionalization of a given trellis, to tabulate bounds on the trellis complexity for all of the best-known linear codes, and to extrapolate the results to lattices and sphere packings. The second activity is the development of novel data transmission techniques suited to specific channels of practical importance and extending beyond the classical error control approach. Guided by the general principle that the channel structure should be taken into account in a well-designed communication system, the following channels will be considered: bursty intersymbol interference channels, such as present day digital voice transmission, both twisted pair and wireless, and emerging digital subscriber loops; maximum a posteriori likelihood channels characterized by a nonuniform a priori distribution on the set of possible messages, arising in fixed rate quantization without entropy coding; channels characterized by an arbitrary specified set of most likely error patterns, such as those arising in concatenated coding, logic networks, and man-made noise environments; and channels characterized by subjective distortion criteria, rather than the overall system BER, such as those arising in speech and image coding. NCR-9502582 Konstantopoulos, Takis This is a proposal about the development of a rigorous approach toward network management and performance analysis for high-speed networks considering local and global aspects of a network management system. Local aspects include the design of flow controllers at the edges of the network that take into account the provision of quality of service and the interaction between users in a network switch. The investigator will extend recently develop ed techniques that are based on the so-called reflection mapping, develop testing techniques and simulations, and compare these to existing schemes. The investigator will also study traffic modeling. He will develop rigorous methods for validating self-similar traffic processes arising from the operation of an integrated services high-speed networks and use such models in establishing performance analysis methods. Studying the global aspects of a management system involves using a macroscopic picture of the network currently being developed by the investigator. The picture strips out the minutiae of the operation of the network, while retaining its dynamic character (it is not static). The investigator proposes the use of such a picture by a network management system in order to predict, prevent, and correct undesirable behavior that might lead to degradation of services across the network.